Definite Integration: Algorithms and Applications

The project is an effort to investigate the mathematical theory and
algorithms associated with the symbolic evaluation of definite
integrals. The first class of functions that will be considered is
the family of hypergeometric functions. This class is characterized
by satisfying a differential equation of second order with exactly
three singular points. The PI will attempt to develop an automatic
procedure based on the Barnes representation for these functions.
The natural next step is the family of Heun functions that have four
singular points. The project also considers many topics that have risen from previous
investigations by the PI. These include arithmetical properties of
sequences coming from the iteration of integrals, questions of logconcavity
of sequences appearing in the integration of rational functions and
general questions on the p-adic properties of naturally occurring sequences.
A general theory for these valuations will be developed. A third component
of the project is the implementation and justification of a heuristic method
developed by the PI and his coworkers to evaluate integrals coming from
Feynman diagrams.

Many problems in physics and engineering require the exact
evaluation of definite integrals in terms of the parameters appearing
in them. These integrals come up in the study of particle physics and
classical mechanics. While it is not always possible to find such an
expression, an efficient and robust symbolic software package should
give the result in closed-form, or decide whether such expression is
achievable. The goal of this project is to develop algorithms that will
expand the capabilities of existing software packages that are
widely used in industry and universities. A second goal is to develop
mathematical theories for theoretical questions that appear in the
development of the previously mentioned algorithms.